GEM: Support for the Operation and Analysis of Data from the Induction Magnetometer at Iqaluit, NW, Canada: A Conjugate Site to South Pole, Antarctica

This proposal is a request for funds for the next three years (remainder of the GEM Boundary Layer Campaign) to analyze the data that is being received from an induction magnetometer operating at Iqaluit, Northwest Territories, Canada which is nominally magnetically conjugate to South Pole, Antarctica. The magnetometer was built and installed at Iqaluit in June, 1993 with funds provided under the GEM program and Grant # ATM-9111929. The major objective of the GEM Boundary Layer Campaign is to understand the interaction of the solar wind with the Earth's magnetic field and the transport of energy across dayside boundaries. Waves are an important mediator of this transport of energy due to the collisionless nature of the medium in which the boundaries are imbedded. Induction magnetometers measure the high frequency component (greater than 0.1 Hz) of naturally occurring ULF waves in the Earth's magnetosphere and in the solar wind which cannot be done with conventional magnetometers. Ground measurement and the study of these waves in the magnetosphere is important because they are of sufficiently short wavelengths to propagate as wave packers in the Earth's magnetic field. In such a mode of propagation the Pc 1 and Pc 2 waves can be used as probes of the topology of the geomagnetic field and its boundaries. Their resonant generation by ions and the modification of their propagation by cold plasma populations, indirectly provides a study of these particles. The location at Iqaluit, MW Territories is vital because this site permits a global study of the ULF waves by using several sites in the Antaractic a which these waves are also measured as well as at the Sondre Stromfjord site in Greenland. Repetitive structure in the wave form at two opposite hemisphere sites 180 degrees out of phase can be an indication of closed magnetic field lines. A time delay between sites at different longitudes in either hemisphere can give scale size and/or motion of the source creating the waves. Spacecraft making single point measurements are hard-pressed to define boundaries, but done in correlation with multiple ground measurements, as proposed here, one can begin to build a global picture of the important dayside magnetospheric boundaries. As a result of this correlative work in providing "space-truth", ground measurements in the future can monitor these boundaries and their dependence upon solar wind and, ultimately, solar conditions.